Acquisition of Giga-Op Simulation/Computation Environment to Support Electrical Engineering and Computer Science Research at Lehigh University

9413782 Boult This award will establish a giga-op simulation/computation facility at Lehigh University to support research in signal and image processing; computer vision; parallel algorithm development; software systems research; and wave-model computations in microwave IC design/packaging, optical design and material studies. The instrumentation acquired by this award includes an I/O server, a parallel compute server, a floating point server, a graphics server, and a high speed network. ***